SHF: Small: Collaborative Research: Evidence-based Reliability Assessment of Software Product Lines

This proposal will be awarded using funds made available by the American Recovery and Reinvestment Act of 2009 (Public Law 111-5), and meets the requirements established in Section 2 of the White House Memorandum entitled, Ensuring Responsible Spending of Recovery Act Funds, dated March 20, 2009. I also affirm, as the cognizant Program Officer, that the proposal does not support projects described in Section 1604 of Division A of the Recovery Act.

This collaborative research will create techniques that improve the reliability of software product lines. A software product line is a family of software systems that share certain common features and differ according to a set of specified variations. Use of software product lines has grown rapidly in industry because such reuse reduces the cost of building new systems.
Reliability is important to product-line developers since many product lines, such as mobile phones, industrial robots, and surgical imaging systems, require reliable operation. This project focuses on development of a rigorous framework for incremental assessment and prediction of software product line reliability (SPL-iRAP). The research has three major thrusts: (1) developing reliability modeling techniques for software product lines to handle the effects of variations and ongoing changes, (2) investigating the use of reliability models for prediction across the product line based on empirical data, and (3) quantifying the benefit of the reuse on software quality. The researchers will train students, particularly women and underrepresented groups, in software reliability techniques, create new curriculum units for teaching, and partner with industrial developers of product lines to demonstrate the new techniques.